Fault Chronology: A K-Ar Technique

Determining fault-movement chronology is of fundamental importance in several fields, however dating of movements is normally accomplished indirectly by cross-cutting relationships. These commonly have large ranges, and a direct dating technique would be widely useful. This project will attempt to develop and test a method that relies on the formation of fault products such as submicron illite from clay gouge, pseudotachylite and ultracataclasite that can be dated by K-Ar techniques. The Catalina detachment fault in southeastern Arizona will be utilized in these efforts. Results if successful, will be of widespread interest and utility.